U.S.-France Workshop: Supersymmetry and Unification of Fundamental Interactions, Paliseau, France, May 20-25, 1995

This award will support travel of 12 U.S. participants to a U.S.-France workshop on Supersymmetry and Unification of Fundamental Interactions, Paliseau, France, May 20-25, 1995. The workshop will cover research areas of supersymmetry, string theory and unification of fundamental interactions, and the participants will explore prospects for observing supersymmetry at colliders and in non-accelerator and dark matter experiments. The organizers are Pran Nath of Northeastern University and Costa Bachas of the Center for Theoretical Physics at the Ecole Polytechnique, Paliseau, France. The workshop will consist of theoretical and experimental presentations by established researchers and advanced graduate students and will include two sessions to promote collaboration among the participants. A U.S.-France working group will be formed to coordinate experiments and ongoing collaborations.